Torsional-Flexural Behavior in Nonlinear Analysis and Design of Steel Structures

The objective of the research is the development of a practical analytical formulation for torsional-flexural behavior in steel framed structures. Member and material nonlinearity are considered in the analysis.